Mathematical Sciences Computing Research Environments

9505897 Gray The Department of Mathematics at the University of Illinois at Urbana-Champaign will purchase computer equipment which will be dedicated to the support of research in the mathematical sciences. The equipment will be used for several research projects, including in particular: i) Stephanie B. Alexander, Curvature, topology and interior size of Euclidean hypersurfaces and Riemannian manifolds with boundary. ii) Douglas C. Bowman, Algorithms for q-series identities. iii) Nick B. Firoozye, Image Segmentation via Wiener's Theorem and Wavelets iv) John W. Gray, Object-Oriented Category Theory v) Joseph Rosenblatt, Computational studies in phase retrieval.